Trace-Driven Evaluations of the Memory Behavior of Large Commercial Applications

Computer architecture research is based on experimental evaluation of application behavior.
One critical issue in the architecture of high-end enterprise servers is the design of the memory
hierarchy, which must be designed to support current and future data-intensive applications.

Few evaluations of the memory behavior of large commercial applications exist, especially in the
public domain. The research proposed here is based on a collaboration between IBM and USC to
take advantage of the IBM Watson Server Performance Laboratory to explore the memory
behavior of high-end commercial applications.

More specifically, it is proposed to use the IBM MemorIES board to collect bus activity
traces from a modern server machine running large, finely tuned OLTP, DSS and Web workloads.
Because of the sheer size of the traces, samples of transaction records will be collected only
in selected time intervals.

Besides obtaining traces, the goal of this project is to characterize the memory
behavior of these applications, to evaluate alternative memory hierarchies for future
high-end commercial servers, and to explore new multiprocessor architectures for
commercial systems.

The experimental environment provided by the IBM Watson Server Performance Laboratory
cost millions of dollars and years of effort to setup. This proposed research will leverage these
efforts. It is a unique opportunity to collect and disseminate traces and experimental data
which would be practically impossible to obtain under any reasonable research budget.